Mathematical Sciences: Quantum Groups and C*-Algebras

DMS-9623008 PI: Albert Sheu University of Kansas The proposer will continue his research on the interaction between C*-algebras and geometry, with emphasis on the groupoid C*-algebra approach to quantum groups and deformation quantization. Topics to be studied include the realization of quantum groups as groupoid C*-algebras, leaf-preserving and group-preserving deformation quantizations of concrete Poisson Lie groups, holomorphic foliation and deformation quantization, and the cancellation problem for group C*-algebras. The main tools to be used in this research will be from various mathematical branches like C*-algebras, Lie groups, differential geometry, and pseudodifferential operators. This research is motivated by the recent worldwide interest in the noncommutative aspect of geometry originated from the concept of quantization which links together several branches of mathematics and quantum physics. In the physical sciences, it is important to study the invariance of quantities under various symmetry group actions. The theory of quantum groups generalizes the classical theory of symmetry groups and provides new and promising directions in the study of quantum physics. By studying the structure of quantum groups in a new way and by exploring related questions, the proposer hopes to contribute to the understanding of this relatively new and exciting area of mathematics.